Shipboard Scientific Support Equipment, R/V Blue Heron, 2009

ABSTRACT

17 July 2009
Proposal Number: 0910894
Institution: University of Minnesota Duluth
PI: R. Ricketts

The proposal requests five Shipboard Scientific Support items for the University of Minnesota Duluth; namely an expanded fixed fire suppression system, ship’s service generator overhaul, HVAC up-grades in the dry lab, new RADAR’s, and new life rafts. All items will either enhance safety or provide greatly improved science support capabilities.

Broader Impacts: The University of Minnesota supports federally funded scientific research on the Great Lakes and routinely exposes graduate and undergraduate students to the marine sciences. The R/V BLUE HERON is scheduled to complete over 50 NSF sponsored days in 2009.